Anomalous Dispersion Enhanced Nonlinear Optical Devices

9521664 Singer The PI proposes to demonstrate and study anomalous dispersion optimized Cerenkov phase-matched second harmonic generation and to investigate its effect on cascaded third-order nonlinearities. Theories of Cerenkov phase-matched second harmonic generation in waveguides indicate that intrinsic phase-matching when coupled with Cerenkov phase-matching leads to large enhancements in second harmonic generation efficiency, and more recently, have suggested that large phase-shifts in cascaded nonlinearities can occur. Simulations indicate large enhancements in efficiency even with incomplete intrinsic phase-matching. The use of Cerenkov phase- matching in combination with an appropriate intrinsic phase- matching scheme eliminates critical fabrication or material properties. Anomalous dispersion has been shown to be an effective intrinsic phase-matching technique in organic solutions, and recently in polymeric waveguides. The use of anomalous dispersion along with the Cerenkov process also overcomes the effect of absorption in anomalous dispersion phase-matching by guiding the second harmonic light in the cladding. We will demonstrate this type of phase matching and study its dependence on fabrication and material parameters in electric-field-poled polymeric waveguides. The structures rely on a poled nonlinear optical layer composed of a polymer doped with a recently developed anomalous dispersion nonlinear optical dye. Both slab and channel waveguide structures will be investigated. The nonlinear phase shift of the fundamental light will also be studied. Anomalous dispersion may represent an important enhancement mechanism for nonlinear optical interactions which depend on phase- matching properties. This would lead to more efficient photonic devices for application in optical data storage and processing. ***